Conference on Receptor Regulated Calcium Influx; May 14-16, 1995: Pacific, California

9416210 Stuart Thompson Calcium ions hold a central position in the hierarchy of events that regulate both the metabolism and the unique functional attributes of neurons in the nervous system. A delicate interplay exits between the entry of calcium into the cells through ion channels in the membrane and the removal of calcium from the cells by ion pumps. When this balance is disturbed for longer than a few minutes, the result is nerve cell death. Consequently, there is great interest among researchers, clinicians and pharmaceutical manufacturers in understanding the mechanisms that control calcium levels in neurons. This conference will bring together researchers, educators, graduate students and drug company representatives to discuss the latest findings in this research area. The focus is on a neuly discovered pathway that directly links the metabolic state of the neuron to the control of the calcium entry pathway. This pathway is changing our view of metabolic regulation and neuronal function. This meeting will bring together the key persons involved in this research around the world.